NUE: Nano-Enlightenment

This Nanotechnology Undergraduate Education (NUE) program entitled, "Nano-Enlightenment," at Drexel University under the direction of Dr. Adam K. Fontecchio, Electrical and Computer Engineering Department will develop thematic groups of multi-week modules to be 'embedded within' Drexel's interdisciplinary set of freshman and sophomore courses. The themes will be nano-oriented, each theme spanning multiple courses within a given academic quarter, to examine an aspect of nanotechnology from a truly multi-disciplinary aspect and imbue the students with a sense of the all-pervasiveness of nanoscience throughout their chosen discipline.

The proposal for this award was received in response to the Nanoscale Science and Engineering Education (NSEE) program solicitation, NSF 05-543, Nanotechnology Undergraduate Education (NUE) component, and is being co-funded by the Directorate for Education and Human Resources (EHR), Division of Undergraduate Education (DUE).